Experimental Particle Physics

This action would provids funds for continued research in experimental high energy physics at Northeastern University, to be carried out by a group consisting of six faculty, four research associates, one senior programmer, one technician, eight graduate and two undergraduate students. The group will concentrate its research efforts on Experiment-706 at Fermilab (a study of direct photon production in hadronic collisions), on experiments with the L3 detector at CERN, (European Center for Elementary Particle Physics, high energy electron positron collisions in the LEP collider), and on the plastic scintillating fiber tracking and vertex finding generic detector development program for the Superconducting Super Collider. The E-706 experimental program at Fermilab involves a continuation of the analysis of the data from the 1987-88 run, and two additional runs, one in 1990, the other in 1992. The work at CERN involves a continuation of the application of the scintillating fiber technique to the calibration and monitoring of the tracking system for charged particles in the L3 detector. The scintillilng fiber development program involves software simulation, bench-tests in the laboratories at Northeastern of various fiber options and tests of different PSF detector options with cosmic rays and in a particle beam.